POWRE: Functional and Physical Co-Analysis in Timing Verification

EIA-9973797
Hassoun, Soha
Tufts University

CISE/POWRE: Functional and Physical Co-Analysis in Timing Verification

This is exploratory work in innovative timing analysis that considers the interaction among the physical, functional, and timing aspects of a circuit. The proposed approach is based on developing a novel gate delay model, the dynamically bound delay model, that can accurately capture delay variations due to physical, functional, and timing interactions. The PI will also investigate timing analysis algorithms that complement the model. The novel delay model and comparable algorithms will allow analyzing and verifying the temporal behavior of large sequential circuits while co-analyzing the layout and functional effects. The research will be utilized to advance the PI's academic and research career.